Mathematical Sciences: NSF-CBMS Regional Conference in the Mathematical Sciences on Singular Integral Operators; Missoula, Montana; August 28 - September l, 1989

Professor F. Michael Christ of the University of California at Los Angeles will be principal lecturer at an NSF-CBMS Regional Conference to be held at the University of Montana in August of 1989. The lectures will discuss recent developments concerning Calderon-Zygmund singular integral operations and their applications to function theory, including boundary value problems for Laplace's equation on nonsmooth domains and analysis of functions of several complex variables.